Mechanistic Studies of Electroosmotic Control in Capillary Zone Electrophoresis

CTS-9318694 Iowa State University Cheng S. Lee ABSTRACT The aim of this project is to understand certain factors in capillary zone electrophoresis (CZE) in order to develop gradient elution High Performance Capillary Electrophoresis. The magnitude and polarity of the SYMBOL 122 \f "Symbol" potential strongly influences protein adsorption as well as the direction and magnitude of electroosmotic flow. For this project, a radial potential gradient will be tested as a means of varying the SYMBOL 122 \f "Symbol" potential and thereby reducing protein adsorption and enhancing the revolving power of the technique. Dispersion studies under a hydrostatic pressure-driven flow component will be conducted in a set of tests in which the fractional length of the capillary under electroosmotic control will be changed. A series capacitance model combined Gouy-Chapman-Stern-Grahame theory will be evaluated with experimental results. CZE is a very promising technique that offers the analytical capabilities of electrophoresis and the convenience of HPLC. Its development will provide a powerful tool in support of the biotechnology and pharmaceutical industries. IBMBIO COM' ` IBMDOS COM' ` AUTOEXECBAK s" Õ FLW K PSFONTS K ! 89DECS PRE .N T"" AUTOEXECBAT E J BURKA PRE dP #zs SAVERS j " ICONS j " LM Y CTS-9318694 Iowa State University Cheng S. Lee ABSTRACT The aim of this project is to understand certa in factors in capi v w 3 5 ! !J ! F ( Times New Roman Symbol & Arial , 9 9 " h #c %#c % 5 1 Nichelle Coward Nichelle Coward